Science Management Office ARCSS Ocean-Atmosphere-Ice Interactions

The Polar Research Center at the University of Washington will establish a science management office for the Oceans-Atmosphere Ice Interactions (OAII) component of the Arctic Systems Science (ARCSS) global change research program. Initial science planning and management for this activity established initial plans and priorities for interdisciplinary ocean- and atmosphere-related Arctic research, and an ARCSS OAII Science Plan was developed. The Science Management Office (SMO) will support the OAII science steering committee and various working groups. Based on community input the steering committee formulates recommendations on research priorities and assists in developing Announcements of Opportunity for ARCSS research. The steering committee also reviews and updates annually the OAII science plan and provides recommendations to the funding agencies. The SMO will organize and conduct workshops that bring together experts to further define and rank scientific initiates and related activities. It will also serve as a point of contact for coordinating the diverse research activities of OAII investigators. Information will be disseminated from the SMO through newsletters, electronic mail, and other means to keep the community up to date on program activities, directions, and opportunities.